Spectroscopy of Negative Molecular Ions

Professor Farley will study the high resolution laser spectroscopy of negative molecular ions. Rare species of ions, normally difficult to produce in sufficient density to study, will be measured using a coaxial ion- and laser-beam spectrometer placed at the center of an optical buildup cavity. Photofragmentation and autodetachment of the negative ions as a function of optical excitation will lead to basic understanding of the electron-nuclear coupling processes in negatively charged molecular species.